CT-ISG: Compiler-Enabled Adaptive Security Monitoring on Networked Embedded Systems

CT-ISG: Compiler-Enabled Adaptive Security Monitoring on Networked
Embedded Systems

Zhiyuan Li, Saurabh Bagchi, Yung-Hsiang Lu

Department of Computer Science,
Department of Electrical and Electronic Engineering
Purdue University

Hardware technologies have made steady progress
in miniaturization of sensors and computing/communication devices,
which has driven a trend towards pervasive computing, which is a way
to let computing devices directly interact with the physical world to monitor
the natural environment, to provide building safety, and so on.
In order to make pervasive computing a reality,
it is critical to secure the underlying networked embedded systems,
because these systems may collect important
environment data upon which time-sensitive decisions are dependent.

Unfortunately, many of networked embedded systems, e.g. wireless and
wired sensor networks, RFID infrastructure, wireless mesh networks,
have components or links that are openly exposed to potential
adversaries and hence are under constant security threats such as node
capture, denial of service, and intrusion, among others. To make the
matters worse, many networked embedded systems have much more
constrained resources such as storage, bandwidth, computing power and
energy than computers used in non-embedded applications, e.g. desktop
machines and servers. Sophisticated computer security schemes
developed over the last few decades are often infeasible on networked
embedded systems, at least not in their original forms.

The research team of this project
develops a multi-grade monitoring scheme, supported by a new
programming interface,
in which low-cost monitoring activities
are deployed in normal mode of operation of the systems
to detect suspicious symptoms which are possibly, although
not necessarily, caused by security threats.
This effort will lead to much more effective, yet affordable, security
monitoring and defense on networked embedded systems,